Flexible Statistical Modeling

The investigator studies statistical models in a variety of applied
situations which require innovative modifications of the standard
technology. Document classification builds models in extremely
high-dimensional feature spaces, as do models for inference and
prediction with gene expression arrays. Species occurrence and
abundance models deal with large numbers of species, often sharing
many characteristics. In each of these settings, the different
contexts have led the researcher to develop special forms of
regularization that allow one to exploit the structure in the data.

In this advanced technological age, we are faced with analyzing extremely large
volumes of data. Two of the several examples this researcher deals with are gene
expression measurements (40 thousand measurements per human sample), and
online document classification (often the web is the source). Standard
statistical tools do not work well in these situations. This investigator
studies innovative adaptations of these tools designed to defeat the
challenges these problems pose.